REU: Acousto-Optics

Seven projects are proposed in the area of acousto-optics. Three of these are extensions of work started under the previous NSF grant. In the area of weak acousto-optic interaction, three projects deal with the visualization of three dimensional sound fields by scattered light. Two of these are concerned with high frequency, wide band Schlieren imaging, of relevance to acousto-optic signal processing. The third one deals with the wave analysis of a recently developed convenient method of Bragg diffraction imaging, of relevance to diagnostics and general visualization. The four remaining projects address the, as yet largely unsolved, problem of the calculation of strongly interacting three- dimensional light and sound fields of arbitrary shape. One of these projects attacks the problem by Monte Carlo computer simulation of the quantum mechanical scattering process, which we have shown to give good results in two dimensions for known cases. The second one uses a novel "carrierless" beam propagation algorithm, that has shown considerable promise. For the third approach we will try successive Born approximations using angular plane wave spectra, and the last approach will be an extension of the Feynman diagram technique to three dimensions. The common aim of all projects is to enhance the knowledge base of acousto-optics by developing physically intuitive concepts, formalisms and algorithms, of relevance to engineering practice. Both theoretical and experimental components are present, and extensive collaboration with other researchers in this area, both domestic and foreign, is being developed.